Planning Grant: Proposal for Intelligent Maintenance Systems Center Site

This action provides funding for a planning grant toward the establishment of a new site tat the University of Missouri-Rolla for the Industry/University Cooperative Research Center on Intelligent maintenance Center. The proposed site will focus on addressing the needs of aerospace, earthmoving, energy, infrastructure, manufacturing and process industries in the areas of monitoring, diagnostics and prognostics. This collaboration will create a synergetic effect by creating new opportunities for the existing units and by providing a larger pool of resources for the proposed Center.